Analysis of Multiple Drug Resistance in Yeast

9307962 Golin In yeast, mutations in about ten genes bring about either hyper-resistance or hypersensitivity to a broad spectrum of drugs. Previous genetic analysis has suggested that these phenotypes are due to alterations in a putative trans-membrane protein pump and the gene products that regulate it. The experiments in the present project have several goals. First, biochemical studies are being carried out which should establish whether drug resistance in mutants is indeed due to drug efflux. Second, genetic studies are being done which will clarify whether there is a second pumping mechanism with different drug specificites as implied by previous work. Finally, simple experiments which might clarify whether these trans-membrane pumps have other roles in the cell besides drug export are being conducted. %%% The research has implications for clinical problems such as the rise of multiply-drug-resistant yeast and tuberculosis infections. ***